An Activity-Based Introductory Statistics Course for All Undergraduates

An Activity-Based Introductory Statistics Course for all Undergraduates An activity-based statistics course for undergraduates is being developed that draws from recent experiences at the secondary level and in industry, where statistics has been made relevant by focusing on the production and analysis of data of interest to the participants. Laboratory activities are being created with emphasis upon modern data analysis and graphical techniques, student projects, case studies, technology, and innovative teaching practices that treat statistics more as a laboratory science and less as a subject for lectures. This project is producing a cohesive collection of laboratory units for students of introductory statistics, along with reference, assessment and implementation manuals for instructors.